International Conference on Scanning Tunneling Microscopy/ Spectroscopy (STM '95) held July 23-28, 1995 in Snowmass Village, Colorado

9522994 Whetten This award provides funds to the American Vacuum Society for the partial travel support of 30 graduate students to attend the 8th International Conference on Scanning Tunneling Microscopy and Related Techniques. The conference will be held in Snowmass Village, Colorado during July 23-28, 1995. The aim of this conference is to enhance the interface between material science, engineering, electronic, and other areas. Paper presented at this conference will be published in the Journal of Vacuum Science and Technology.